The Evolution of Planetary Nebulae and Their Central Stars

During their late stages of evolution, stars of roughly 1 solar mass eject their outer, hydrogen-rich envelopes and thereby produce so-called planetary nebulae (i.e., expanding gaseous shells that, despite the nomenclature, have nothing to do with planets). The remaining stellar cores (i.e., the central stars of the planetary nebulae) consist predominantly of helium, though heavier elements may be present as well. The Principal Investigator proposes to study the formation of planetary nebulae and the evolution of their central stars, with particular attention paid to determining the elemental abundances present in the precursor stars, the nebulae, and the central stars of planetary nebulae. The work will include the compiling of a "Catalogue of Spectrum Line Intensities" of planetary nebulae.